X-Ray Determination of Proteins and Viruses

9603571 Rossmann X-ray diffraction, using crystallized viruses, will be the primary tool to analyze the assembly and uncoating intermediates of various viruses. Frequently, however, it is not possible to crystallize transient intermediates on account of their short-lived, unstable properties. In these cases, the X-ray crystallography will be augmented by cryo electron microscopy. The major emphasis will be on the study of bacterial viruses, such as single-stranded X174 and the far more complex double-stranded T4. The far more complex and far larger dsDNA T4 phage has over 40 structural proteins. While it is unlikely that it will ever be possible to study the whole virus by X-ray diffraction, it is possible to study the atomic structure of individual proteins. Combination of X-ray diffraction and cryo-EM is to be used to determine the interactions of components. Part of the work will be to develop suitable techniques for interfacing cryoelectron microscopy with X-ray diffraction techniques and also to examine particles that lack perfect icosahedral symmetry. The objectives will be to determine not only the structures, but also the molecular mechanisms by which the assembly intermediates are stabilized and triggered into the subsequent steps of morphogenesis. Similarly, the structural intermediates of viral disassembly during cellular infection are to be examined. Comparision of different viral systems should lead to the identification of common strategies and evolutionary relationships. The goal of the research is to elucidate the mechanisms by which infectious virus particles are assembled from their component parts. Although the work is devoted to the study of bacterial viruses, the viral mechanisms are also likely to be utilized by plant and animal viruses. The different process of disassembly during viral entry into a host will also be studied. Viral assembly often requires scaffolding proteins which help guide protein folding. Hence, the stud ies will be among the first to observe the structures of these chaperone-like proteins complexed with their substrates. The study of their transient intermediates will require the development of techniques to combine X-ray crystallography (which can resolve features near atomic resolution) and cryo-electron microscopy (which has poorer resolution but lacks the requirement of making crystals) Combination of these techniques is likely to be critical in the future development of structural biology.